Control of Phase Noise and Dynamic Linewidth in Semiconductor Lasers

This effort involves the use of artificially fabricated semiconductors to reduce the frequency width of the radiation emmitted from a semiconductor laser. Not only is this of great importance for the efficient utilization of semiconductor lasers for a variety of applications, it is also of fundamental importance. The limitations on the linewidth of such lasers is not yet clearly understood.